Control System for Live Load and Live Load Effects on Bridges

The objective of the research is to develop an integrated system for monitoring live load and verifying live load carrying capacity of highway bridges. Therefore, the proposed research will deal with the development of the control system for live load on bridges and the control system of live load carrying capacity. The anticipated major contributions will include: the improvement of field testing procedures using remote sensors and transmitters on-site processing of the data, calculation of critical truck loads, accumulated fatigue load spectra, maximum deflection, derivation of reliability-based criteria for acceptability limits, elements of active control with on-site response to critical overload as determined by comparison with the developed reliability-based criteria, integration of truck weigh-in-motion with diagnostic testing and proof load testing, derivations reliability-based criteria for establishing proof load level for bridges. The research will be based on the experience gained in an extensive field testing program and bridge reliability analysis at the University of Michigan.